SBIR Phase I: A Consumer Robot Designed to Help Children with Autism Spectrum Disorders Practice Critical Social Skills

This Small Business Innovation Research Phase I project focuses on optimizing the design of a
robot for children with Autism Spectrum Disorders (ASD). Research has shown that children
with ASD interact more easily with inanimate devices, such as robots, than with humans.
Despite this promising research, there are currently no consumer robots on the market
specifically designed to interact with ASD children. The goal of this research is to investigate
what set of features are optimal for a robot designed to be an effective and affordable therapy
tool for children with ASD. Initial designs will be generated based on existing research and
previously conducted user tests. These designs will be used to create prototypes which will then
be used to conduct user studies with ASD children to determine which designs elicit the
greatest engagement, measured by proximity to robot, number of interactions (physical & eye
contact), duration of interactions and number of vocalizations. The expected results are a
validated design of an affordable consumer-ready robot that addresses the specific needs of
children with ASD.

The broader impact/commercial potential of this project involve both the direct impact of
providing a beneficial new therapy tool for children with ASD as well as providing a platform
from which additional research can be launched. The CDC currently estimates that 1 in 88
children in the United States will be diagnosed with an Autism Spectrum Disorder and ASDs
are reported to occur in all racial, ethnic, and socioeconomic groups. Early intervention can
make a significant difference in the lives of these children and their families. Tools that allow
children to practice and reinforce skills learned in formal therapy sessions are strongly desired
by parents. The goal of this project is to develop a validated design for a robot to help children
with ASD practice social referencing skills. By designing both for effectiveness and
affordability, it will be the first autism robot targeted towards the home therapy market.
Additionally, the results of this project will also be beneficial to researchers studying the use of
robots as autism therapy tools. This robot will serve as an affordable alternative to expensive
research robots, most of which were not designed specifically to interact with special needs
children.